The Ohio State University ConnectionOne Center for Radio Frequency Systems

The Ohio State University will become a research site partner in the multi-university Industry/University Cooperative Research Center for Telecommunications, Integrated Circuits and Systems. The research site will provide the capabilities, expertise, and research facilities for conducting collaborative research in the multi-university research program. The collaborative research will enhance the research/education activities within the group and advance the state-of-the-art of the wireless communications technology, and establish stronger ties with industry.